Dissertation Research: The Evolution of Complex Social Systems in the Quibor Valley, Northwestern Venezuela

9312521 Drennan Under the direction of Dr. Robert Drennan, Ms. Lilliam Arvello will collect data for her doctoral dissertation. Coordinating her work with that of a larger project she will conduct archaeological research in the Quibor Valley of northwestern Venezuela. This area is of interest because of both the rich prehistoric remains it contains and the archaeological attention which, in the past, has been directed to it. Ms. Arvello will determine the exploitable resources in the region and how these varied through time and space, and also examine how human settlement patterns changed in size and structure over time. She will survey a total of 30,000 ha. of the valley using standard techniques. On the basis of aerial photographs and maps, the area will be divided into survey units, each of which will be 100% covered by pedestrian survey. All surface scatters and sites identified will be plotted. Surface collections will be made at each site and systematic intensive surface collection and test pit excavations will be done in selected locations. On this basis it will be possible to determine spatial changes in settlement pattern over time and to examine the degree of both inter and intra site variability in different periods. Although Northeastern South America has received less archaeological attention than the Mayan region to the North or the Incan culture of the Andes, this area is important because the same basic processes which led from simple to complex societies took place here as well. Archaeological evidence indicates a progression from small unstratified social groupings to larger and more stratified chiefdom level societies. The Quibor Valley has rich agricultural lands and archaeological sites in this region preserve paleobotanical information. Researchers have postulated that the introduction of maize and the supposed increase in population density which this allowed is responsible for the emergence of complex societies in this area. However th e data are scanty and Ms. Arvelo's work should provide a more convincing test of this hypothesis. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase our understanding of how complex societies developed and will contribute to the training of a promising young scientist. ***